(DIS) Think Again...Girls Can!

The goal of this dissemination project is to develop a model public service ad campaign
that will advance the participation of women and girls in SMET through effecting a
positive shift in attitudes among parents, educators, students and others in the community
regarding girls' pursuit of interests / careers in SMET. The projects lead institution is
Stony Brook University and collaborating organizations / institutions include the Long
Island Fund for Women and Girls, Briarcliffe College, and television stations WLIW21 (PBS)
and WLNY55.

This informal education project will develop a series of dynamic television spots, to be
disseminated through local television broadcasts and through online links. The target
audienceconsists of parents, educators and other authority figures, as well as peers, who
have a great deal of influence over young peoples' perceptions of their educational and
future professional options. Spots will reflect research findings that illustrate current
gender inequities in SMET education and careers, and "de-bunk" some of the commonly
accepted beliefs regarding gender-related causes for these disparities; information
about often ignored or unremarked historical and current contributions of women in
SMET; and national statistics on professional shortages in the SMET
employment pool.

This video campaign will attempt to re-shape public attitudes regarding the gender
appropriateness of girls' SMET pursuits. Using psychosocial research as a guide, the
project will disseminate information in ways that may directly alter attitudes among
individuals in the targeted groups, as well as encourage new behaviors that may then
trigger compensatory attitude changes. This is a novel approach which combines
technology-based applications, marketing strategies, and psychosocial research to target
change in specific underlying public attitudes that hinder the participation of girls and
young women in SMET.